Complex Coordinate Methods in Atomic Scattering

New numerical techniques and computer codes will be to evaluate the one and two-electron Slater integrals in prolate spheroidal coordinates needed to apply the hidden crossing theory (complex internuclear distance) of reactions to diatomic collisions.